Twelfth Enzyme Engineering Conference

9318821 Clark This Conference will highlight scientific as well as engineering aspects of enzyme technology. The program will include sessions devoted to new biocatalysts, advances in biosensor technology, metabolic and protein engineering, metal-based biocatalysts, and new biomolecules with enzyme-like properties. Industrial applications are also to be presented. ***